Presidential Young Investigators Award

This grant is to support a Presidential Young Investigator. The research is focused on small solid or imiscible fluid particle immersed in another fluid, and their interaction with each other as well as the continuous phase. The primary interest is on the effect of inertia. The research is applicable to the prediction of rheological properties of suspensions and emulsions, separation processes, and the motion of cells.